Partial Support for Publication of Proceedings of the 1991 Particle Accelerator Conference; San Francisco, California; May 6-9, 1991

This award will provide partial support for publication of the Proceedings of the 1991 Particle Accelerator Conference; San Francisco, California; May 6-9, 1991, organized by the Institute of Electrical and Electronics Engineers (IEEE). The conference will focus upon new developments in the science and technology and use of accelerators. Its purpose is to provide an opportunity for communication among accelerator scientists, engineers, and others concerned with accelerator applications. The program includes reports from all the major accelerator laboratories throughout the world.